An Undergraduate Automated Test and Measurements Laboratory.

The objective of this project is to set up an exemplary automated test and measurement laboratory for undergraduate education. It will include twelve workstations using IBM PC/AT level microcomputers controlling an array of Hewlett-Packard test instrumentation. Upon completion of this laboratory, all manual test and measurement instruments in the curriculum will be replaced by computer-controlled, multi-point instrumentation.